Biochemical Analyses of Cytochromes c Biogenesis

The c-type cytochromes possess heme that is covalenty ligated to the apocytochrome and these cytochromes are present in distinct compartments within eucaryotes (i.e., mitochondrial intermembrane space) and procaryotes (i.e., periplasmic space). Major questions that remain concern what factors are needed for their assembly and how these individual factors are themselves transported to the proper compartments. The long-term objective of this work is to understand at a detailed molecular level the specific proteins and events that are required for the biogenesis of c-type cytochromes. Moreover, the mechanism by which heme is transported across bilayer membranes from its site of biosynthesis, the mitochondrial matrix or the bacterial cytoplasm, is a fundamental question in biology. Specifically, using the Gram negative photosynthetic bacterium, Rhodobacter capsulatus, we will develop biochemical assays for processes required in cytochrome c biogenesis. Previous molecular analysis of R.capsulatus mutants that are defective in cytochrome c biogenesis have indicated that hel genes may encode the first- reported specific heme transporter; ccl gene products may be involved in the ligation of heme to apocytochrome c in the periplasmic space. Thus, we will develop (1) in vitro heme transport assays and (2) in vitro heme lyase assays and apply these to R. capsulatus mutants that are predicted to be defective in these processes. %%% Both eucaryotes and procaryotes possess heme proteins called c-type cytochromes that are present in distinct compartments within their cells. These cytochromes are vital for mitochondrial and bacterial electron transport processes and consequently ATP production. The c-type cytochromes have been the subject of thousands of studies concerning their function and structure (e.g., X-ray crystallography). Nevertheless, little is known about how a native c-type cytochrome is assembled in a particular compartment. For example, it is unknown how (and in what form) heme is transported from its site of biosynthesis, the mitochondrial matrix or the bacterial cytoplasm, to the assembly site of the cytochrome (i.e., the mitochondrial intermembrane space or the bacterial periplasm). Thus, the mechanism of heme transport across bilayer membranes is a fundamental question in biology. Our previous molecular genetic analysis of mutants in the bacterium Rhodobacter capsulatus that are specially defective in cytochromes c biogenesis, have implicated specific gene products (called hel) as the best candidate (and first ever reported) for a specific heme transporter. This proposal includes the development of in vitro heme transport assays to further investigate these defects. Additionally, the mechanism by which heme is covalently ligated to the apocytochromes will be studied by the development of in vitro assays for this process. The long-term objective of this work is to understand at a detailed molecular level the specific proteins and events that are required for the biogenesis of c-type cytochromes in bacteria.